Development of Diazirine-based Amination Reactions

Dr. Justin Lopchuk of H. Lee Moffitt Cancer Center will develop a series of new chemical methods and reagents to form carbon-nitrogen (C-N) bonds. Compounds containing one or more nitrogen atoms are valuable in various materials, agricultural chemistry, chemical biology and across the pharmaceutical industry. These methods will support innovation in advanced manufacturing by the creation of novel technologies that convert simple, inexpensive feedstocks into high-value products. The broader impacts of the project will involve researcher education, lab experiences for aspiring scientists, and community outreach. Students conducting research will be cross-trained in organic synthesis, photochemistry, and electrochemistry, along with the opportunity to learn target-oriented synthesis. Through participation in the Moffitt Accelerating Research Careers in High School (MARCH) program, high school students will gain hands on experience in the lab, helping to propel them into college and careers in STEM. Outreach will be conducted by the laboratory team with patients and their caregivers to give a behind-the-scenes view into the research environment.

This project seeks to develop diazirines and diaziridines (three-membered rings with two nitrogens and one carbon) as novel amination reagents for use with a wide range of reaction partners. These reagents will offer several benefits over electrophilic and radical amination reagents including bench stability, tractable intermediates, ease of purification, and mild deprotection conditions. This approach will be applied across various sub-domains of organic chemistry such as transitional metal catalysis, photoredox chemistry, and electrochemistry, thereby greatly increasing the potential use cases, substrate compatibility, and broad applicability of the technology. The developed chemistry will be leveraged to create new nitrogen-rich building blocks for use in materials, agriculture, and healthcare, as well as complex natural product scaffolds.